Spaces of Nonpositive Curvature and Geometric Rigidity

Abstract

Award: DMS-9971749
Principal Investigator: Christopher Croke

This project concerns two major themes. The first, joint work
with Bruce Kleiner, considers infinite groups G acting
cocompactly on nonpositively curved spaces H (in the sense of
Alexandrov), and treats the relationship between the geometry of
H and the induced action of G on the ideal boundary of H. This
can be considered an aspect of geometric group theory and is
partially motivated by some questions of Gromov. The other theme,
involving Kleiner and Sharafutdinov as coauthors (on different
aspects), is the study of rigidity theorems (i.e. metric
uniqueness) on compact manifolds. Here for example we consider
isospectral problems: to what extent must spaces with the same
spectra (e.g. eigenvalues of the Laplace Beltrami operator, or
lengths of closed geodesics) be isometric. This also includes
questions about metric rigidity induced by conjugacy of geodesic
flows, as well as inverse scattering problems.

The second theme of the project concerns the question of whether
a space can be determined by a certain set of data. One part of
this relates to questions of remote sensing. For example: can
you determine the density of an object (say a persons body or the
moon) from measurements taken "from the outside"? The CAT scan
is a practical example where one determines the mass density of
an object from measurements of the total mass along straight
lines. An alternative set of measurements is the set of times it
takes for sound to travel between any two points on the boundary
(this is a special case of the boundary rigidity question dealt
with in the proposal). The thrust of the proposed study is to
determine under which circumstances certain sets of data
(e.g. eigenvalues, lengths of closed geodesics, distances between
boundary points) are sufficient to completely determine the
geometry of the spaces in question. Groups show up naturally as
symmetries of various spaces. The first theme of this project
concerns a class of infinite groups which are symmetries of
Hadamard spaces H (which include spaces of nonpositive
curvature.) As such they induce symmetries on a natural
boundary, B, of H. Bruce Kleiner and the PI have found an
unexpected relationship between the action of the group on B and
the geometry of H. It had been suspected that in this setting
that the action on B would be determined only by the nature of
the group (as is the case in the related setting of hyperbolic
groups acting on negatively curved spaces). This study intends
to determine the precise nature of this relationship and use it
to study properties of the group and space.